MRI Consortium: Development of a Wide Field-of-View Camera for the Schwarzschild-Couder Gamma Ray Telescope

Observations of very-high energy gamma-ray light offer a window on some of the most energetic environments in the Universe, where gamma-rays are produced as particles are accelerated under extreme conditions produced by strong gravitational or magnetic fields. This award will support the construction of a wide-field camera for a ground-based gamma-ray telescope with a novel optical design that is located on the site of the VERITAS gamma-ray observatory in Arizona. This new technology will dramatically improve the optical performance of ground-based Imaging Atmospheric Cherenkov Telescopes for gamma-ray astrophysics. Next generation scientific studies will be enabled through this award, including multi-wavelength observations, and rapid follow up of transient sources. The camera and telescope will also serve as a prototype for the Cherenkov Telescope Array, a new gamma-ray observatory under development by an international consortium. The award will provide the opportunity for integrated research and education for a large number of undergraduate students. Data from the camera will be used in citizen science projects hosted on the Zooniverse platform.

The wide-field camera, featuring 11,328 channels of imaging and readout electronics, will be installed on a prototype Schwarzschild Couder telescope that is currently nearing completion in Arizona. It will provide coverage of an 8-degree field of view, allowing rapid observations of the sky around transient and multi-messenger alerts, and fully exploiting the optical performance of the Schwarzschild-Couder design. The telescope will be operated in concert with the existing VERITAS array, providing cross-calibration and enhancing the scientific capabilities of both instruments.